Nuclear Magnetic Resonance Spectroscopy

The recent acquisition of a nuclear magnetic resonance (NMR) spectrometer by the Chemistry Department at Washington and Lee University is affording students additional opportunities to become familiar with a broad spectrum of modern instrumental techniques. Specific applications of NMR spectroscopy have been incorporated into quantitative analysis, organic chemistry, organic qualitative analysis, instrumental analysis, and biochemistry. In addition, NMR is used extensively in the undergraduate research participation program, which has been a strong emphasis in the Department for many years.